The Introduction of High Performance Liquid Chromatography into the Curriculum of the Chemistry and Biology Departmentsat Roanoke College

This project enables the Chemistry and Biology Departments of Roanoke College to introduce HPLC into the undergraduate curriculum. The instrument allows the departments to: 1. serve as the cornerstone for the setup of a joint chemistry- biology laboratory facility thus maximizing equipment usage, and enhancing the cross-disciplinary training of our students; 2. serve students from the introductory level chemistry courses through the intermediate level Cell Physiology and Instrumental Analysis courses, to the upper level Independent Research courses in biology and chemistry; 3. replace an outdated instrument. The equipment includes a HPLC, UV-VIS detector and a refractive index detector.